Transitioning from Reactivity to Selectivity in Photochemical Isomerization

In this project, Professor Alison Wendlandt and Professor Gabriela Schlau-Cohen of the Department of Chemistry at the Massachusetts Institute of Technology are studying the mechanism of an unusual contra-thermodynamic alkene isomerization reaction that converts lower energy starting materials to higher energy product isomers under catalytic conditions driven by visible light irradiation. This process is an exemplar of an emerging class of “out-of-equilibrium steady state” reactions that is poised to influence critical chemical processes ranging from fine chemical synthesis to energy storage. However, the elementary steps and selectivity drivers of this reaction – and related processes – remain fundamentally unknown. The goal of this research is to identify the specific molecular pathways that drive productive catalysis and lead to contra-thermodynamic selectivity. The project lies at the interface of organic, inorganic, and physical chemistry, and is therefore well suited to provide the highest level of education and training for scientists at all levels.

Excited state decatungstate polyanion and cobaloxime dual catalysis enables contra-thermodynamic isomerization of alkene functional groups across a wide array of substrate classes. Under photochemical irradiation, these reaction conditions establish an out-of-equilibrium steady state defined by kinetic asymmetry across a potentially vast number of plausible elementary steps. In this project, Professor Alison Wendlandt and Professor Gabriela Schlau-Cohen will leverage molecular synthesis and spectroscopic methods across the broad range of timescales inherent to photocatalytic processes to identify the underlying mechanisms. Such mechanistic information will reveal key insights into the selectivity drivers governing diverse photochemical processes, powering future reaction design for advanced manufacturing.